Various Topics in Theoretical Physics

This grant supports continuing basic research in theoretical nuclear physics. The topics include deriving the nucleon-nucleon interaction from the solitons of an effective meson field theory, algebraic approaches to nuclear and atomic scattering problems and the possible role of supersymmetry in nuclei.